Fostering Positive Interracial Interactions

This project involves a series of laboratory studies that examine whether the motives that people carry into interracial interactions may contribute to negative experiences and, and how altering such motives might contribute to more positive interactions. Recent research has found that contact across racial and/or cultural divides can sometimes be negative. These types of interactions appear to require additional effort to manage, and consequently often result in mental and emotional fatigue. The research included in this project aims to discover avenues to reduce this potential outcome of interracial contact by investigating the effects of intergroup interactions on Black, White and Latino/a participants (a) with approach-oriented versus avoidance-oriented mindsets, (b) focused on their aspirations for the interaction (promotion-focused) rather than their responsibilities within the interaction (prevention-focused), or (c) with the goal to develop rather than demonstrate positive racial attitudes and intergroup understanding (learning rather than performance goals) during the interaction. The investigators hypothesize that approach-orientation, promotion focus, and learning goals will enhance the quality of these interactions and, in turn, eliminate the disrupting effects the interactions have on individuals' cognitive performance and emotional well-being.

There is mounting evidence that diverse environments have widespread social, societal, and organizational benefits. Nevertheless, the fact remains that many individuals find such diverse environments and contact with members of different racial groups both cognitively and emotionally challenging. The findings of this research will aid in creating and optimizing the positive aspects of racially diverse environments by improving the quality of the intergroup contact experiences which are characteristic of these settings.